Travel: NSF Student Travel Grant for 2026 Computational Complexity Conference (CCC)

This project will help support student attendance at the 41st Conference on Computational Complexity (CCC) conference to be held in Lisbon, Portugal from August 3-6, 2026. CCC is the premier conference in computational complexity theory and has held this role for many years. Many attendees are students, for whom the conference serves as a valuable educational experience, both in terms of the technical content of the talks and the opportunities for networking that the conference provides.

Computational Complexity is a core area of Computer Science and provides foundations underpinning much work across all of theoretical computer science and beyond. The search for efficient algorithms has important ramifications in many areas of business, technology, and science; complexity theory plays an essential role in the task of rigorously understanding the limitations of efficient algorithms. Important fields such as cryptography and quantum computing grew out of computational complexity and play a big role in it.